CSR-AES: Language, Compiler and Run-time Support for Irregular Applications in Emerging High-productivity Languages

This project is developing new techniques for programming "irregular"
parallel applications on high-performance highly parallel platforms,
in collaboration with the Chapel programming language team at Cray,
Inc. The project addresses several core issues for such applications.
First, the work is extending Chapel's existing support for
user-defined irregular data distributions by adding general language
features for specifying optimized handling of special cases, which are
usually essential for adequate performance. Second, the project is
designing and evaluating software transactional memory (STM)
algorithms that scale to very large scale systems (e.g.,
distributed-memory clusters), in contrast to previous STM work that
has focused on smaller-scale (cache coherent) systems. Third, a
(separately funded) component of the overall research project is
developing deterministic language mechanisms for parallel computations
on pointer-based data using a type and effect system for expressing
parallelism and proving noninterference.

If successful, this research will improve ease of programming and
deliver high performance for a wide range of applications that are
especially challenging for programmers today, namely, "irregular"
applications. Further, the work aims to achieve two kinds of direct
technology transfer to industry: contributions to the Chapel language
and compiler effort at Cray, and contributions to the joint language
design effort in the DARPA HPCS program. The major research
artifacts, including the language specification and compiler
prototype, will be made available as free, open source software for
the research community to use. The dynamic compiler infrastructure
for high-performance parallel programs should be a particularly
valuable tool for further research in this area.